Satellite Magnetic Field Data Analysis: Magnetospheric/Ionospheric Currents and Waves

The investigators will continue analysis of magnetic field observations acquired by satellite-borne magnetometers. The effort is an integrated team approach to advance understanding of field-aligned currents, magnetospheric and ionospheric currents, and electromagnetic waves and turbulence. The group will investigate two different research topics related to field-aligned currents: comparing predicted to measured magnetic field perturbations along a satellite orbit, and studying the relative importance of driving sources for magnetohydrodynamic fast mode waves in the magnetosphere. The first study will use measurements by the SuperDARN radar network and the AMIE numerical model. The second study will make use of multi-point observations from the AMPTE, CRRES and GOES satellites.